Transcriptional Repression by Polycomb Group Products in Drosophila

9304936 Simon The aim of this research is to understand how stable states of gene expression are maintained during development. Molecular genetic and biochemical methods will be used to study proteins that control transcription of homeotic genes in Drosophila melanogaster. The homeotic genes determine the identities of segments in the fly. Expression of the homeotic genes, in restricted positions along the anterior-posterior axis, is needed throughout embryonic, larval and pupal development. Segmentation gene products activate the homeotic genes in restricted positions in 2-hr old embryos, but they decay by about 4 hrs. The Polycomb group (PcG) products then maintain restricted homeotic gene expression throughout subsequent development. The PcG products repress transcription of homeotic genes in positions where they are not normally expressed. Current models suggest that the PcG products recognize homeotic genes that are repressed initially and they maintain this repression by assembling stable protein-DNA complexes in the chromatin at these loci. This research will investigate the individual roles of PcG repressor proteins. Much of the work will focus on the extra sex combs (esc) protein, which may play a short-term role in assembling or guiding other PcG proteins that act as stable repressors. A major objective of this work is to determine the biochemical roles of esc protein. This research will test if and how esc protein interacts with other PcG proteins and when during development these interactions occur. Antibody to esc protein will be produced and the times and places of esc protein accumulation will be determined by protein blotting and whole mount staining of embryos. Immune precipitations will be performed to test for esc association with other PcG proteins and to check for esc protein binding to DNA. Site-specific mutagenesis, coupled with germline transformation, will test a protein domain found in esc, and the yeast repressor TUP1, fo r a role in protein-protein contact. An "interaction-trap" screen will be performed, using yeast cells, to identify fly proteins that associate with esc protein. Finally, a genetic screen will be performed in flies to identify novel PcG genes. The screen will use P elements as transposon mutagens. Transposon- tagged PcG genes will be cloned by PCR methods and their molecular analysis will be initiated. Once a program of gene expression is established in cells of a developing embryo or tissue, it is important that inappropriate genes are stably repressed. Repression of homeotic genes by PcG proteins provides a model for how a determined state of gene expression is maintained during development. By investigating how PcG products work, we will learn how developmental decisions, once made, are stabilized at the molecular level. Similar molecular mechanisms may be employed during development in a variety of organisms. Indeed, there are similarities in sequence, organization and function between fly homeotic genes and similar genes found in organisms as diverse as worms and mice. ***